Theoretical Investigation of Magnetospheric Convection

This project centers on continued development of the Rice Convection Model (RCM) to study the Earth's magnetosphere and its coupling to the ionosphere and thermosphere. This three-year project concentration on eliminating the fundamental shortcoming of the present RCM, namely the inconsistency between the pressure distribution computed by the RCM from adiabatic-convection theory and the magnetic forces implied by the inputted magnetic-field model. A new algorithm will be developed for fast calculation of 3d magnetic fields that are approximately consistent with RCM- computed pressure distributions. The first convection-model calculation with approximately self-consistent B will asssume steady inputs, no near-Earth neutral line, and no other major non-adiabatic processes. The second self-consistent calculation will represent a classic, idealized magnetospheric substorm, including a growth phase, an expansion phase with disruption of the near-tail plasma sheet, and a recovery phase with reconstitution of the plasma sheet. Work will continue on other RCM investigations, including penetration of magnetospheric electric fields to low ionospheric latitudes, transport of ring- current/radiation-belt particles, and magnetic-field-aligned electric fields. Work applying the RCM to plasma transport in the Jovian magnetosphere will be pursued, though at a rate that depends on the prospects for appropriate data from the Galileo mission.